US-Pakistan: Partnership-building and Pilot Research for an Evaluation on Strengthening Private Schools for the Rural Poor in Pakistan

1201603
Khwaja

Description: This project by the Dr. Asim Khwaja, Harvard Kennedy School, Harvard University is to catalyze collaboration with scientists in Pakistan in the area of Evaluation and Strengthening Private Schools for the Rural Poor in Pakistan. The foreign collaborator is Ali Asjad Naqvi, Research Director at the Center for Economic Research in Pakistan (CERP). The emergence of low-cost, for-profit private schools serving the rural poor has transformed the education sector in Pakistan and low-income countries across the globe. Small rural private schools are among the fastest growing segments of the small-to-medium-sized enterprise (SME) sector in Pakistan. Recent research has demonstrated the power of these schools as they (i) serve the rural poor; (ii) employ, teach, and empower women; and (iii) outperform government schools in math, Urdu, English learning outcomes, in addition to (iv) producing higher levels of civic values among students. Despite the demonstrated strengths of private schools, constraints to continued growth of this sector are emerging. The PI plans a series of activities that will lay the groundwork for a rigorous empirical evaluation of new models for providing financing and education support to private schools in emerging economies. The project builds on existing work by the PI supported by NSF (SES 0962504: “Understanding Education Markets Experimental and Observational Evidence from Pakistan”) and expands into the specific area of low-cost private schools. Research results have revealed that, in spite of their relative low cost, private schools in Pakistan outperform government schools, but they face constraints to continued growth and quality improvements. Motivated by a dearth of evidence on how best to support this dynamic sector, The PI will conduct the preliminary work that is needed to design, implement, and evaluate models to support private education entrepreneurs through the provision of financial, educational and operational support. This entails engaging with key international stakeholders and utilizing additional data sources to design a set of interventions and associated project evaluation methodology to support the sector and identify implementation partners for the interventions. Dr. Naqvi will play a key role in partnership development, designing project activities and providing local input to inform the research evaluation.
Intellectual Merit: Cognizant of both the rapid rise of low-cost private schooling and the emerging constraints this sector faces, the PIs aim to fill a gap in the existing knowledge: how to interface, support, and enable the success of the private education sector. They plan to address a number questions still left unanswered by existing literature. What needs of private schools are the greatest, or which constraints are binding? What are the returns to investments in the low-cost private education sector, in terms of profitability and social outcomes? What financial mechanism (grants, loans, or equity investments) will generate the maximum return on investment and improvement in social outcomes? And finally, what is the optimal combination of financial and access to educational support to further strengthen this dynamic sector?
Broader Impact: The empirical evidence generated by this study has the potential to make unique contributions to academia, and to also generate significant reaction among policymakers and practitioners in the NGO and private sectors. Should the model prove sustainable and generate the envisioned results, the limits for potential impact extend well beyond the evaluation areas. There is a potential for these models to be replicated, sustained, and scaled to similar contexts where un- and under-served school age children can be supported by unleashing the power of markets and these free enterprises to dramatically improve education outcomes across the country and ultimately across similar countries globally.